Precise GPS Ephemerides for Crustal Deformation Surveys

Scripps will serve as a facility for the archiving and analysis of GPS global tracing data to support regional crustal deformation projects. To support operations of the Permanent GPS Geodetic Array (PGGA) in southern California, scripps generates precise orbital ephemerides and maintain a comprehensive archive of global tracking data. At present, orbits are at the several parts in 108 level computed within several days of observation and based on nearly automatic data processing. These orbits land global tracing data have proven to be of great benefit to ongoing crustal deformation projects.